CAREER: The Role of Mechanical Properties in Amyloid Binding to Cellular Surfaces

The research objective of this award is to gain an understanding of how age-related mechanical
changes in cells increase their susceptibility to being bound by the amyloid peptide and
its aggregate forms. A hallmark of Alzheimer's disease (AB) is the rearrangement of the Ab to a
non-native conformation that promotes the formation of toxic, nanoscale aggregates. The
largest risk factor for AD is aging, and the proposed work aims to determine how mechanical
changes in cells associated with aging increases the ability of AB to bind cellular surfaces. For
these studies, age-related alterations of membranes will be mimicked by specific chemical and
compositional alterations to lipid bilayers, which are models of a cells plasma membrane, prior
to exposure to AB. In parallel, the ability of AB to bind to cells in culture, with chemically induced
changes in mechanical properties designed to mimic ageing, will also be determined. Agerelated
changes include oxidative damage, enhanced cholesterol content of the membrane, and
disruption of cytoskeletal components. Scanning probe microscopy techniques will be applied to
correlate mechanical changes, measured with nanoscale spatial resolution, of the model lipid
bilayers and cells with their susceptibility to Ab binding and subsequent disruption.
If successful, the proposed research would yield detailed understanding of how cellular surface
properties associated with aging influence AB membrane binding, aggregation, and ultimately
toxicity. The binding of Ab and its aggregate forms to cellular surfaces represents a fundamental
step in potential toxic mechanisms associated with AD and has broader implications in
protein/membrane interactions. The educational plan focuses on providing meaningful research
experience to pre-service science, technology, engineering, and mathematics (STEM) teachers,
with a particular focus on pre-service teachers (PSTs) planning on careers in the region of
Appalachia, as persons from economically-distressed counties in this region are
underrepresented in STEM fields. The PSTs will develop a lesson or teachable unit based on
their research activities that can be directly translated into the classroom. It is believed that
participating PSTs will be able to improving science education in the region